Image Analysis Addition to Several Engineering Laboratories

This project provides two image analysis stations in order to enhance all engineering laboratory classes. Each station will be equipped with a CCD video camera, a 13-inch video monitor and an 80386 processor-based microcomputer with a frame grabber card and a super VGA monitor. The stations add additional dimensions to laboratory experiments in civil, mechanical, chemical and electrical engineering classes through the instant analysis of images. Image analysis is used with experiments to determine such things as sieve analysis of fine and coarse aggregates, percent of solids in activated sludge, and true stress curves in tensile tests. Image analysis is further used in studies utilizing the metallurgical microscope, in counting the droplets in air, and in determining Poisson's Ratio during tensile testing.